Development and Performance Evaluation of Low-Power Intelligent Structural Control Systems

9503761 Shoureshi This supplement is to provide further financial support to the project "Development and Performance Evaluation of Low Power Intelligent Structural Control Systems." The project will develop a neural-based control scheme, with emphasis on learning of structural parameter variations, and design and construction of a new low-powered adaptive actuation system for structures. The control system will have a fuzzy based uncertainty compensator. A small scale cable bridge structure has been constructed for implementation of the proposed control scheme. The supplementary funds will be used in this experimental investigation and to support a graduate student. ***